Molecular Analysis of Fungal Sporulation

The formation of conidia (asexual spores) in the filamentous ascomycete, Aspergillus nidulans, involves the production of differentiated structures composed of several different tissue types and results in the synthesis of a large number of new poly (A)+ RNAs not observed in undifferentiated mycelia. An important feature of this organism is that conidiation is normally suppressed in submerged culture, but can be initiated by changing the growth habitat to an air interface. Induction (the transfer of colonies from liquid to solid media), however, will permit the initiation of conidiation only after the organism has attained a change of state termed developmental competence. The proposed research is directed toward determining the molecular basis of developmental competence and toward understanding the mechanisms involved in the initiation of a regulatory pathway. Preinduction mutants have been genetically characterized, but a molecular approach is required to determine how different preinduction functions interact, and to deduce how the expression of preinduction genes initiates the expression of the large number of post induction genes which are transcriptionally activated by growth in the induced state. The specific aims of this proposal are (l) to clone the wild-type genes represented by the preinduction and early postinduction mutants, (2) to compare the transcriptional activity of these genes with their time of expression as ascertained by temperature-shift analysis, and (3) to identify gene interactions by determining if the transcription of one gene is affected by the mutation of another gene. Development, the transition of a totipotent undifferentiated cell to a regulated collection of differentiated cells, is a complex process. The use of a "simple" eukaryotic organism such as Aspergillus as a model system for mechanisms utilized in the differentiation process can suggest approaches and mechanisms for understanding the process in more complex organisms. The results to be obtained from this work should give greater insight into the as yet mysterious process of differentiation.